Studies in Theoretical Physics

97288858 Kadanoff This grant supports theoretical research and is funded jointly by the Divisions of Materials Science and Physics. Topics to be investigated include: the development of singularities in partial differential equations; development of techniques for measuring and modeling well-developed turbulence; the study of interface motions and flows; and the study of models of granular materials. The research done here will be integrated within a larger effort which involves close contact with experimentalists, computations and mathematicians. Specific projects include: (1) the study of singularity development in second and fourth order partial differential equations, in part through similarity solutions; (2) further applications of the methods of statistical physics to the development of dynamical theories for granular materials; (3) development of models for turbulent behavior with particular focus upon the time-dependence of the solutions of turbulence models; (4) the study of interface motion, with particular reference to chaotic dynamical behaviors and applications to sonoluminescence. %%% This grant supports theoretical research and is funded jointly by the Divisions of Materials Science and Physics. Topics to be investigated include: the development of singularities in partial differential equations; development of techniques for measuring and modeling well-developed turbulence; the study of interface motions and flows; and the study of models of granular materials. The research done here will be integrated within a larger effort which involves close contact with experimentalists, computations and mathematicians. ***